IEEE Information Theory Workshop on Coding, System Theory and Symbolic Dynamics

9314148 Heegard The workshop brings together specialists in coding, system theory, and symbolic dynamics. Recent results have shown how concepts in the three fields are quite closely related. Each field has its own language and viewpoint, which has posed barriers to sharing results and concepts. The purposes of this workshop are to promote communication among researchers in each of these three areas and to present cutting-edge research problems in each field with the hope that cross-fertilization will promote progress. The workshop will be held October 18-20, 1993 in Mansfield Massachusetts. The organizing committee includes David Forney, Motorola/Codex; Chris Heegard, Cornell University; Brian Marcus, IBM Almaden Research Center; and Mitchell Trott, MIT. ***